What is a World Worth? Value Elicitation for Global Environmental Problems

9309428 Fischhoff Global environmental problems pose difficult and far reaching decisions for societies. As with other visible and important societal problems, attempts to elicit and incorporate views of the public in the decision making process are often frustrated by available survey techniques. If the public is to be involved meaningfully in these decisions, then several conditions need to be met: (a) the views of representative members of the public need to be elicited; (b) participants in the elicitation process need to understand the impacts of different policies on their households, societies, and the world; (c) participants need to articulate the implications of their basic values for particular policies; (d) participants must express their opinions in a way that captures their complexity, intensity, and uncertainty; and (e) opinions must be aggregated in a way that derives their implications for societal decision making. This research advances an approach to meeting these conditions. Implementing the approach requires focused investigations of the different steps in the elicitation process including: formulating a coherent policy issue; explicating the implications of different options; designing and standardizing the response mode; and evaluating the procedure. The research will provide fundamental methods and tests to develop a new tool in preference and valuation elicitation. Later phases of the research will demonstrate the tool and test it more formally with larger numbers of participants. ***